CRI: Center for Perceptual Robotics, Intelligent Sensors and Machines (PRISM) at the City College of New York

This project, designing and fabricating several prototypes of robotized sensor nodes with sensing, communication, and wall-climbing capabilities, enables the Robotized Intelligent SEnsor NETworks (RISE-NET) to operate in 3D space. The proposed work on distributed robotics includes intelligent sensing, cognitive pervasiveness, and wireless communications towards formation control in complex 3D spaces. The project brings the following expectations:

-Technology adopted in the new generation of climbing robots might transform the present 2D world of mobile rovers into a new 3D universe and produce unique previously not available test-beds for robotics and sensor network communities.
-Multimodal sensing and data fusion thrust to add intelligent components for challenging tasks such as urban target recognition, multimodel remote hearing, and rapid 3D dynamic scene understanding from moving platforms.
-Smart machine and pervasive environment research to bring in pervasive HCI methodologies that facilitate human-in-the-loop robotized intelligent sensor networks via multimodal natural communication, smart displays, and augmented 3D environments.
-RISE-NET testbed (especially the wireless communication units) to enable evaluation and demonstration of the feasibility of communication research.

Broader Impact: Educational activities at the PRISM center include introducing new courses with real search projects, reforming senior design courses around the RISE-NET theme, launching student robotics club and robot competition, and mentoring minority student research projects.